Civil & Environmental Engr Education in the Era of Large Language Models: Curricular Redesign, Competency Assessment, and AI Enabled Learning; Evanston, Illinois; 17-18 June 2027

Large language models (LLM) have become embedded in the daily work of civil and environmental engineering students and practicing engineers, who analyze and design the nation's infrastructure. Noting that the competency standards on which this licensed and safety-critical profession relies were written before these tools existed implies that they neither anticipate such tools nor explain how the discipline should respond. It is critical to address this gap, since large language models can produce polished technical work without the person directing them possessing the underlying professional judgment or the capacity to detect errors or hallucinations. Within a few years of graduation, a civil engineer may place a professional seal on a structural design whose failure can cost lives, so the question of what an engineer must understand without such assistance is a question of public welfare. This project supports a focused, one-and-a-half-day working conference that convenes engineering faculty, practicing engineers, accreditation bodies, and licensure and regulatory stakeholders to produce consensus guidance the field can act on by addressing three questions the discipline has not yet collectively resolved: what future engineers must know unaided, how their competence can be assessed when LLM tools are present, and how such tools can responsibly extend teaching. The conference gives particular attention to whether well-designed learning tools can narrow, rather than widen, the gap between well and under-resourced programs, and reserves participation support for early- and mid-career faculty and faculty from institutions without large research programs.

The conference produces three consensus documents intended to enter existing standards processes. The first distinguishes, at the level of individual competency areas, the knowledge a graduate must retain unaided from what may be responsibly delegated to large language models, written to map onto the recognized body of knowledge and the accreditation outcomes. The second is a rubric that instructors and program assessors can use to design assessments for students with access to these tools, covering both tool-assisted and tool-free demonstrations of competence. The third specifies the opportunities and boundaries under which large language models can serve as a legitimate learning infrastructure. Three parallel working groups will produce these documents, and a closing synthesis session reconciles them into a single roadmap that identifies follow-up tasks and the channels through which each recommendation can advance. Finally, a standing technical committee carries the recommendations forward and tracks how they propagate.